Pubertal Development of Brain and Behavior

The primary functions of the nervous system are to sense, interpret, and
integrate external and internal stimuli and to generate appropriate
behavioral responses. The influence of external and internal stimuli on
the nervous system and behavior changes across the life span. In
particular, puberty is a period of development during which significant
neural and physiological changes result in the emergence of adult
behaviors. Maturation of the nervous system during pubertal development
results in different responses to external and internal stimuli in
adulthood. The overall objective of this research is to understand
developmental events during puberty that alter the integration of external
and internal stimuli within behavioral neural circuits.

This project focuses on pubertal maturation of the neural circuit that
mediates male mating behavior in the hamster. The perception of olfactory
cues from a female and the presence of circulating steroid hormones are
both obligatory for mating behavior in this species. These sensory and
hormonal stimuli activate neurons within a well-characterized neural
circuit in the adult, and the neural integration of these external and
internal cues leads to expression of mating behavior. Previous research
has determined that olfactory stimuli and steroid hormones do not impact
the nervous system of juvenile males in the same way, and therefore mating
behavior is not expressed. This project will investigate pubertal change
in the interactions among steroid receptors and neurochemical responses to
olfactory cues. The working hypothesis is that in the adult nervous
system, the cellular basis for the integration of sensory and hormonal
information involves activation of progesterone receptors by
neurotransmitters or neuropeptides released in response to female olfactory
cues. We hypothesize that such sensory/hormonal integration is not
accomplished prior to puberty for two reasons: 1) estrogen does not induce
progesterone receptors in neurons of the hypothalamus of juvenile males;
and 2) female olfactory cues do not elicit the neurotransmitter or
neuropeptide responses needed for activation of the progesterone receptor
in prepubertal males. Experiments are designed to test both aspects of
this hypothesis, which is proposed to account for the inability of juvenile
males to express mating behavior. This project will contribute to our
understanding of the cellular mechanisms underlying pubertal maturation of
the neural integration of sensory and hormonal stimuli required for
expression of adult-typical behaviors.